Pre- and Post-Decision Editing in a Risky and Complex Task Environment

This study focuses on the processes involved in the editing (memory) of past
decisions. Our goal is to contribute to decision theory while expanding our
collective understanding of how complex auditing decisions are made. The
study builds on a well-known body of preceding work, notably Festinger's
cognitive dissonance reduction theory, Fischhoff's hindsight bias, and
Svenson's differentiation and consolidation theory. Festinger, for example,
has shown that decision makers actively reevaluate the" worth" of the
rejected alternative after a decision has been made--frequently to reduce the
risk of post-decision regret. We focus on both pre- and post-decision
attribute isolation and editing: on how expert and novice auditors make sense
of complex and risky judgment/decision tasks, and on how feedback (or lack
thereof) influences their memory of earlier supportive and counter-indicative
signal ratings. Both pre- and post-decision sense-making (editing) processes
are closely linked to both effective and biased learning. We hypothesize
that there are significant differences in the type of data--qualitative vs.
quantitative and positive vs. negative-- that the professionals and novices
attend to. We also hypothesize that novices are more likely to behave in
accordance with established decision theory than their professional
counterparts; that domain knowledge gives rise to an interesting and largely
unexplored set of mitigating factors.